US-Europe Workshop on Biosensing, Bioactuation and Bio-Inspired Systems; Taormina, Italy; June 14-17, 2008

Abstract
0819567
Rahmatallah Shoureshi
University of Denver

A US-Europe workshop is organized which will address Hierarchical Organization of Biological and Engineering Design and Control of Intelligent Systems, an emerging technology area that would advance engineering and bio, micro, and nano technologies on an integrated platform. The workshop timely follows foot steps of NSF's Workshop on Biosensing and Bioactuation held at University of Maryland in November 2007.

This workshop is scheduled to be held in Italy in May, 2008. It is expected to bring together expertise from US and Europe in: Biology & Bioengineering, Advanced bio-inspired materials, and Nano and Micro Machatronics. Bio-inspired system design needs to benefit from both biological understanding and engineering innovations. The proposed workshop will be a strong interdisciplinary effort that will bridge the gap between science and engineering. This workshop will stimulate diverse domestic and international talents to define a scientific and technological roadmap for biosensing, bioactuation, and bio-inspired systems.

This workshop is jointly supported by NSF (CMMI/ENG & Statistics/MPS) and AFOSR.